Integrated Sensing: 3D Description and Recognition of Human Activities Using Distributed Cameras

In this two-year effort, we propose to address some of the basic research issues that arise in the interpretation of video streams, simultaneously collected by a set of indoor or outdoor cameras.
Specifically, we are interested in inferring movements and activities of one or more humans using
distributed cameras. We propose to develop novel methods for detecting and tracking humans using 3D models
for body parts, and quasi-invariant recognition of activities humans are engaged in. We will make use of the recent advances made in the computational aspects of estimating posterior probability density functions using
Monte Carlo Markov Chain techniques to infer human descriptions and their activities.